MRI: Acquisition of a Scalable Parallel Supercomputer for the Science Vision Center

EIA-9871088 Palis, Michael A. Burke, Kieron Rutgers University Camden MRI: Acquisition of a Scalable Parallel Supercomputer for the Science Vision Center This proposal requests the acquisition of a scalable parallel supercomputer that will provide the computational power to handle the scientific computing requirement of researchers at the Science Vision Center. The specific equipment requested is a Silicon Graphics Origin 2000 Scalable Parallel server with four R10000 processors, 1 gigabyte of memory, and 18 gigabytes of disk storage. This powerful system is expected to deliver at least 10-fold improvement in performance over the conventional workstations on which most of the applications are currently being run. This proposal also requests four Silicon Graphics 02 client workstations, which will be used primarily for applications development, debugging, and data visualization. Together with equipment already on hand, the parallel server and client workstations will be set up as a network, which will also serve as the testbed for the High-performance Distributed Object Programming Environment Project. The goal of this project is to design a CORBA-based parallel/distributed programming environment that will harness the combined power of the parallel server and the workstations to solve large scale parallel applications.